Incorporating Object-Oriented Concepts in the Undergraduate Computer Science Curriculum

This project is aimed at a comprehensive redesign of the three- course introductory computer science sequence for undergraduate computer and information science majors. The course sequence wasexamined in the light of the new ACM/IEEE report "Computing Curricula '91" to ascertain how best to revise the courses to bring them closer to recommended curricula in the report. Some of the fundamental and recurring concepts identified in the ACM/IEEE report, such as complexity of large programs, levels of abstraction, the concept of binding, abstract data types, evolution of requirements, and the importance of software reuse, are not adequately represented in the current curriculum. The project introduces these concepts through the introduction of object-oriented theory, software engineering concepts, and object-oriented programming and design in the introductory curriculum. It is believed that the object- oriented approach will prove more effective in introducing the fundamental and recurring concepts identified above. The objective of the proposed revision is to bring the introductory computer science curriculum more in line with the current state-of-the-art of software development technology. The project will provide the students with access to class libraries, thus enabling them to develop moderately large and realistic projects using contemporary application development environments. The aim is to better prepare the students for advanced undergraduate courses, graduate studies, and the competitive job market. The changes are consistent with the sample course descriptions in the report "Computing Curricula '91", hence it is believed that the results should be generalizable to a large number of computer science departments.